Engineering, Science and Math Education for a Global, Technological Society

This proposal describes a Track 2 project developed by Washington University's (WU) School of Engineering and Applied Science (SEAS), Teaching Center (Faculty/Graduate Training) and the Department of Education are partnering with the St. Louis and the Webster Groves School Districts for the extension of a successful Track 1 GK12 Program. Track 1 focused on Gateway Middle School and Steger Sixth Grade Center. In Track 2 WU will expand to the Construction Career Center (CCC) High School, a St. Louis Charter high school developed to push inner city students to the college level, while providing guidance and training in various trades for those that do not attend college, and to Metro High School, a St. Louis public magnet school with a technical focus and a reputation for innovative education programs. In Track 2 WU will merge new engineering departments into the program while expanding their base of teaching modules, and focus on enhancing existing modules to better prepare the constituents for the global workforce and society of the future. A new emphasis of the WU GK12 teaching module content will be placed on sparking awareness in the GK12 fellows, students and teachers of the role of technology in globalization.